Biological Facilities Center

This award will fund the purchase of varied items of equipment to be housed in a central shared instrumentation facility for members of the Department of Biology at Stanford University. The items include a scintillation counter, ultracentrifuges and rotors, an ELISA plate reader and a protein sequencer. These items are of general use; all 20 members of the department will share in their use. Recently, progress in many, if not all, areas of biological research has depended on instruments and techniques originally developed for molecular biology and immunology. These equipment items will augment the supply at Stanford of instruments needed for a number of such techniques and thus facillitate research by members of a department which is one of the best in the country.